Investigation of Questioning Processes During Conversations About Science

The purpose of this project is to investigate questioning processes during science instruction. Data sources include audio-and, video-tapes of science activities, interviews with students and teachers, journal entries, and student written work. Analysis involves collaboration among elementary school teachers and university researchers in producing narrative analyses of transcripts of classroom conversations during science lessons. The analysis also includes examining: a) forms and functions of questions asked by both students and teachers; b) the nature of spontaneous questions by students; c) the nature of spontaneous questions by teachers as adult learners in teacher education workshops at the Exploratorium; d) structural patterns of classroom questioning; e) uses of questions in implementing and monitoring instructional decisions; and f) developmental differences in questioning among students in different grade levels. Participating teachers are encouraged to conduct research on questioning processes in their own classrooms and to share results at meetings at the University of California at Berkeley during the academic year. The project also provides research opportunities for undergraduates. Participation by minority students and teachers is encouraged in all activities.